Rigidity, Hodge Theory and Arithmetic Applications

Abstract

Award: DMS-0350730
Principal Investigator: Bruno Klingler

The project is concerned with fundamental questions arising in
the representation theory of Kaehler groups and discrete
subgroups of Lie groups. The techniques appeal to various fields,
from geometric analysis to arithmetic. There are four aspects to
the project: 1) study the rigidity and arithmeticity of cocompact
complex hyperbolic lattices, for which Margulis's superrigidity
theorem does not apply. More generally the PI is trying to
construct a reasonable moduli space for non-archimedean
representations of Kaehler groups (analogous to Simpson's
non-abelian Hodge theory for archimedean representations). 2)
study the positivity of a natural kernel on the Bruhat-Tits
building of a p-adic simple Lie groups. This would lead to
strong results in the representation theory of such groups. 3)
find a short-cut to prove that non-arithmetic lattices don't have
property T. 4) use ergodic theory to prove some cases of the
Andre-Oort conjecture for Shimura varieties.

The concept of "rigidity" underlies many of nature's secrets:
certain natural objects (and their mathematical models, like
certain curved spaces appearing in general relativity, or certain
groups appearing in quantum mechanics) can not be deformed. A
fundamental discovery of mathematical analysis was that
"rigidity" is essentially a consequence of "arithmeticity": these
rigid objects have a simple description in terms of sequences of
rational numbers. These numbers provide the cherished invariants
of modern physic. This project aims to develop new methods for
investigating crucial occurences of such arithmetic structures in
some natural symmetry groups, their related spaces and the
dynamical systems where they occur.